Going Beyond Third Century Geometry and Fifteenth Century Algebra

A course entitled Contemporary Mathematics in which students learn about new uses of mathematical developments by using microcomputers is being developed. Students have the chance to see the utility of mathematics by doing mathematics the way it is done in the real world. The student audience includes liberal arts majors and education majors with an Intermediate Algebra background. Student experiences include the discovery method, cooperative learning groups, and an interactive approach. Students have the opportunity to ask what if questions, the ability to see geometric structures, and the ability to do